Reform of the Engineering Program at Sweet Briar College

PROPOSAL NO.: 0230542
PRINCIPAL INVESTIGATOR: Hyman, Scott David
INSTITUTION NAME: Sweet Briar College
TITLE: Reform of the Engineering Program at Sweet Briar College

Abstract

Sweet Briar College (SBC) shares the national concern over the decline
in students graduating with bachelor's degrees in engineering over the last
two decades. Moreover, as a women's college, SBC is concerned with the
ongoing dramatic under representation of women in undergraduate and graduate
engineering programs and in the engineering workforce.
In response, SBC is requesting this planning grant in order to initiate
the reform and upgrade of its engineering curriculum. The objective of this
project is to develop an extensive engineering curriculum at SBC, which would
be only the second such program in the nation at a liberal arts institution
for women.
SBC currently offers students a dual degree program with a number of
cooperating institutions. Students follow a pre-engineering curriculum and
complete a bachelor's degree from SBC and either a bachelor's, or in one case
a master's, degree in engineering from the other university. The program
upgrade will be to institute a true engineering curriculum at SBC: five
courses at the introductory and intermediate level that will comprise the
core sequence of an Engineering Science major, which will be supplemented by
research and internship opportunities. The curriculum will be designed to
complement the strong liberal arts and study abroad traditions of SBC and to
allow the students to take full advantage of the proven nurturing environment
of a women's college.